RUI: Combinatorial Set Theory

Abstract

Award: DMS-0401893
Principal Investigator: Justin T. Moore

The proposed research concerns applying new techniques in set
theory and infinite combinatorics to basis problems in topology,
graph theory, and order theory. In each case, the goal is to
prove a classification theorem for the uncountable objects in a
certain category. Three such categories are topological spaces,
bipartite graphs, and linear orders. The goal is to use forcing
axioms to prove that the category has a finite basis of classical
examples. The techniques employed in analyzing such problems are
often Ramsey theoretic and frequently draw upon results and
motivation which arise in analyzing Cantor's continuum problem
and Suslin's classification problem for the real line. The
proposed research seeks to expand our understanding of forcing
axioms and their impact upon basis problems and the continuum
problem. The PI has already proved that the Proper Forcing Axiom
implies that the uncountable linear orders have a five element
basis, answering one of the central problems of the proposal.
The proof involved new techniques in infinite combinatorics which
are likely relevant to completing the rest of the proposal. At
the crux is the PI's notion of set mapping reflection which was
formulated in relation to his results on the Proper Forcing Axiom
and the size of the continuum. Conspicuous in the solution is
the need for a strong axiom of infinity to obtain the consistency
of a five element basis. This was quite unexpected and may serve
both to explain past difficulties and fuel future research on the
relationship between very large sets and combinatorics associated
with the smallest uncountable cardinal.

The proposed research represents an analysis of fundamental
mathematical objects - graphs, orders, and topologies - using a
generalized version of the probabilistic method which Paul Erdos
pioneered in his study of networks, packings, prime numbers, and
circuit complexity. The apothegm of the probabilistic method is:
"If an object occurs with positive probability, it exists." For
finite probability spaces, this is a fact. For infinite spaces
and their generalizations - known as forcing notions - it
requires additional axiomatic assumptions - known as forcing
axioms. The PI has recently shown, for instance, under such
assumptions that any linear order which cannot be represented as
a collection of rational numbers must contain one of five
critical orders. While at the present this would seem to
represent a theoretical accomplishment with little practical
significance, the style of argument may inspire real world
applications in the future. A recent example of such a success
in set theory is Laver's algorithm for comparing braids. An
important question which arises in a number of areas of
mathematics and science - from particle physics to genetics - is
when two braids can be made to look the same without cutting or
breaking the strands. Laver used ideas from the theory of large
infinite sets to devise a fast algorithm for comparing braids.
The previous algorithm was exponentially slow. Current
algorithms based on Laver's idea run in quadratic time (fast).
Hence the study of infinite sets can provide practical
applications to much more down to earth objects. The proposed
research may some day have applications in the traditional
finitary probabilistic method or less foreseeable impact as with
with Laver's work.